FTIR Study of Bacteriorhodopsin

Bacteriorhodopsin (bR) is a light driven proton pump whose function includes two key membrane based processes, active transport and energy transduction. Despite extensive research on bR and other membrane proteins, the molecular basis of these processes is unknown. Dr. Rothschild's laboratory has developed an approach based on Fourier transform infrared (FTIR) difference spectroscopy which allows these processes to be investigated at the level of single protein residues. This work is providing information about changes in the protonation state and environment of specific residues during the bR photocycle. The goal of this research will be to utilize this approach to develop an increasingly detailed picture of the bR pump mechanism. These studies will be facilitated by recent improved methods developed for time-resolved FTIR difference spectroscopy, polarized FTIR and attenuated total reflection. In collaboration with Dr. H.G. Khorana's group new methods have been developed, based on site- directed mutagenesis, for assigning bands in FTIR difference spectrum to the vibrations of individual protein residues. These techniques allow the investigation of the sequence of protonation changes of Asp groups and other residues in the bR proton transport pathway; changes in the orientation of the bR alpha- helices and changes in pK of individual COOH groups in the membrane. Parallel studies will be conducted using time-resolved UV/visible spectroscopy and resonance Raman spectroscopy. FTIR studies will also be continued on two related membrane proteins from Halobacterium halobium: halorhodopsin (hR), a light driven chloride pump and sensory rhodopsin (sR-I), a phototaxis light receptor.